Ultra Fast Digital Circuits Using 3-Terminal NDR Devices

High speed logic is an essential component of modern computer and digital systems. This project proposes to explore the application of a new class of negative differential resistance (NDR) devices to digital design. Several new types of devices such as resonant tunneling diodes, CHINTS and other devices exhibit high switching speeds and negative differential resistance (NDR). The NDR characteristics have found applications in oscillators and microwave power sources but the use of these devices for digital applications has been explored so far. Our preliminary results indicate that these devices could be used to build high speed arithmetic circuits with picosecond delays, almost an order of magnitude faster than any other known semiconductor circuits.